'Duranes': Ultrahard High-Strength Organic Polymeric Materials

9704143 Wudl This project will develop a new approach to extended-network, very high strength organic polymeric materials. Some of these materials will be ultrahard, others will be "organic zeolites:. Three approaches will be pursued: (a) preparation of new polymers and copolymers where pleiadene (a hydrocarbon which becomes reactive at ca 220 degrees C) is a pendant group, (b) preparation of new polymers in which pleiadene undergoes cycloaddition polymerization to form the backbone, and c preparation of new extended network polymers based on reversible Diels Alder polymerizations and on the pleiadene cycloaddition dimerization reaction and multiple cycloaddition to C60. Once prepared, the new polymeric materials will have their mechanical, optical and electronic properties determined using the latest techniques in materials science and experimental condensed matter physics. %%% These novel polymeric materials should have potential applications as structural materials of strengths approaching diamond as catalyst supports, etc., and may open the door to new families of rationally designed, three-dimensional extended solids. ***